Integration of the Use of an NMR Spectrometer in an Undergraduate Chemistry Program

Integration of nuclear magnetic resonance spectroscopy into the chemistry curriculum at Marian College provides students with an opportunity to put NMR principles into practice through "hands-on" experience, in class projects and in independent research. The use of NMR spectroscopy in Organic Chemistry, Organic Qualitative Analysis, Physical Chemistry, Instrumental Analysis and Independent Research complements student use of infrared and ultraviolet-visible spectroscopy, chromatographic techniques and electrochemical applications.